American Indian Tribal College Distributed Learning Infrastructure in Computing -- Phase I: Strengthening TCU-CIS Through Planning

The American Indian Higher Education Consortium (AIHEC) has recieved a Special Projects award to initiate a planning process to strengthen and expand the Computer and Information Science (CIS) programs at the nation's 35 Tribal Colleges and Universities. The project includes a 2-day facilitated strategic planning event followed by ongoing virtual collaborative planning. The main focus is the use of emerging technologies, particularly those associated with cyberinfrastructure, to provide access to distributed education and support services. Developed plans will include strategies for individual institutional CIS program improvement, collaborative program development, and the development and sharing of distributed academic program resources and curriculum. The expected outcome of this planning process is the introduction of higher level CIS programs throughout the Tribal College institutions.